Mathematical Sciences: Scientific Computation of Nonlinear Problems and Applications of Complex Variables

This project is concerned with research in theoretical, computational and applied aspects of a class of partial differential equations, known as nonhomogeneous Cauchy-Riemann equations. Fast, accurate and parallelizable algorithms for solving these equations in simple and complicated regions will be developed. Basic computational modules based on the theory of these algorithms will developed and implemented on serial and parallel computers. Emphasis will be placed on the use of vector computers such as CRAY-YMP as well as parallel machines such as SEQUENT and NCUBE. These algorithms will be used to solve compressible flow problems and to generate quasiconformal mappings. The theory of these algorithms makes use of analysis based on complex variables. This makes these algorithms elegant and the computational procedure semianalytical. Beside, these algorithms are extremely fast, highly accurate, easy to implement, and parallelizable. The basic computational tools based on these algorithms will be made user friendly and portable so that these can be applied with ease in many pure and applied areas including quasiconformal mappings, fluid flows and inverse problems.